Computational Neuroscience Symposium, October 17, 1992

This grant is for the partial support of a Symposium on Computational Neuroscience at Indiana University-Purdue University at Indianapolis on October 17, 1992. This symposium will be a Satellite Meeting of the 1992 IEEE Systems, Man, Cybernetics Conference which will be held in Chicago on October 18th to 21st. The symposium will emphasize an area which was the subject of a special initiative; i.e., Biosystems Analysis and Control, which involved two directorates and three divisions. The symposium also will act as a follow up to the NSF sponsored workshop on "Bio-Control by Neural Networks" which was held in May, 1990. It will promote the interdisciplinary investigations between engineers, mathematicians, computer scientists and neuroscientists into the area of computational neuroscience.